Preservation of Geoscience Data and Collections

Dickinson.0071061

Preservation of Geoscience Data and Collections

With budget cuts and the downsizing of the U.S. oil industry and some federal
agencies, combined with the lack of space in private and public museums, the
preservation of geoscience data (e.g., cores, cuttings, maps, paper reports,
digital data) is becoming a critical issue for federal agencies, academic
researchers, museums, institutes and industry. This study, by the Board on Earth
Sciences and Resources at the National Research Council, will (1) develop a
strategy for determining what geoscience, paleontological, petrophysical and
engineering data to preserve; (2) examine options for long-term archival of
these data; (3) examine 3-5 accession and repository case studies as examples of
successes and failures; and (4) distinguish the roles of the public and private
sectors in data preservation. The overall goal of the study is to develop a
comprehensive strategy for managing geoscience data in the United States.